Network Caching for Efficient Multimedia Content Delivery

Exponentially increasing multimedia information content has become a problem at the
heart of modern communication networks. This is a paradigm shift from traditional com-
munication networks, where the primary function is information transmission, and where
quality of service improvements are attainable through better dimensioning of bandwidth
and switching resources. However, in networks where information storage plays a central
role, major improvements in quality of service can not be successful without the help of
caching, prefetching and/or mirroring of information. It can be argued that even if an
unlimited amount of free bandwidth were available, the concentration of information on a
small number of servers would cause server overloads, resulting in unacceptable download
latencies.
This general problem has created the explosion of research studies that are to be found
in the network systems engineering literature on Web caching. Although this work has
contributed important engineering solutions, much of it is ad hoc and informal. Indeed, in
the large literature on caching research, it is rare to find papers dealing with mathematical
foundations, especially those underpinning stochastic models. Also, one rarely finds proofs in
a rigorous setting of nontrivial stochastic or average-case properties of caching structures and
algorithms. It is our thesis here that more systematic approaches are needed. This proposal
describes a project to meet this need; more generally, we outline a systematic treatment
that focuses on fundamental design issues, one that, in dealing with these issues, integrates
experimentation, analysis and statistical measurements.
Network cache design objectives are reductions in access latency, traffic congestion, and
server loads. These objectives can be attained only through a thoughtful design that ad-
dresses many important and challenging research topics. Some of the fundamental questions
that remain without definitive answers include: dynamic caching and caching with expiration
times; design and analysis of easily implemented heuristic algorithms; impact of locality in
request sequences on caching performance; caching and prefetching in low bandwidth access
environments, with a special emphasis on wireless Web accesses; cache allocation and sizing
problems; and Web-graph performance modeling. Extending the knowledge base and deep-
ening our insight into these and several other equally fundamental caching system design
problems is the main theme of this proposal. The ultimate goal is to utilize this improved
knowledge base to develop an experimental testbed for achieving practically feasible and
efficient network caching systems.
The inherent complexity of the research topics identified here, and the network caching
problem as a whole, necessarily call into play all available research tools. Thus, methodologi-
cally, the scope of the proposed research ranges from mathematical modeling and analysis to
statistical measurements and experimentation. The impact of our results, by their interdis-
ciplinary nature, will not just be limited to designing multimedia network caching systems,
but will potentially lead to improved problem solving techniques in related fields of computer
algorithms, software engineering, probability theory, and operations research.